Conference: SaTC: US-Korea Joint Workshop on Cybersecurity Innovations

This project strengthens research collaboration between the United States and the Republic of Korea researchers in cybersecurity through a coordinated series of international workshops that bring together researchers from academia, government, and industry from both sides. The workshops, in the US and the Republic of Korea, create opportunities to exchange ideas, identify emerging scientific challenges, and establish new research partnerships in areas of national interest. The project's novelties are the integration of complementary expertise from two research communities around the complementary themes of using artificial intelligence to improve cybersecurity and ensuring that artificial intelligence systems themselves are secure and trustworthy, together with a structured framework for sustained international engagement. The project's broader significance and importance are the advancement of long-term scientific collaboration, the development of future joint research activities, and the strengthening of international partnerships that contribute to more secure and trustworthy digital technologies.

The technical program of the workshops addresses research topics related to artificial intelligence for cybersecurity, security and privacy of artificial intelligence systems, trustworthy artificial intelligence, adversarial machine learning, artificial intelligence-assisted vulnerability discovery, software assurance, security of foundation models and large language models, cyber-physical systems security, resilient networks, critical infrastructure protection, and possibly others. The workshops combine invited presentations, lightning talks, panel discussions, and roundtable sessions to identify open research problems, emerging scientific directions, and opportunities for collaborative research. The project is expected to result in new research collaborations, influence future research directions, and contribute to the global effort to securing emerging cybersecurity technologies.